SM: Five Inverse Problems Workshops targeting Computational and Applied Mathematics together with Application Areas

McLaughlin
DMS-0852516

The investigator and her collagues organize a series of five
workshops in five different application areas of inverse
problems. All of the represented fields are advancing rapidly
and in all cases the mathematical advances, the engineering
advances and the new experiments enabled by new technology or
innovative ideas combine together to make a rich opportunity for
new research projects at the interface of disciplines. It is
expected that research projects will be inspired, and in some
cases be newly developed, as a result of the workshops. The
presentations include state of the art techniques in mathematical
sciences and engineering; an important addition in some of the
workshops is the inclusion of experimentalists who describe their
latest advances, the data sets that are obtained from those
experiments, and their anticipated results from that data. Early
career participants, including a strong representation of
participants from underrepresented groups, are targeted. The
Inverse Problems Center, IPRPI, provides an ideal environment to
hold these workshops.

The problem areas being targeted all impact quality of life
and safety of individuals. Two of the workshops specifically
target medical imaging; one is in imaging of biomechanical tissue
properties, a new, very fast moving area with significant success
anticipated, and another considers diffusion optical tomography,
which also has a great deal of promise. Successes in these two
areas significantly impact human health. Two other workshops
emphazize identification in geosystems and waveform tomography.
Both target understanding the effects of earthquake dynamics, as
well as the identification of new energy sources. As such, the
safety of individuals and quality of individual life is strongly
affected. Finally, the microlocal analysis workshop emphasizes a
broad set of application areas, including radar imaging, which is
an important homeland security component. Much of the grant
supports participants who are students, postdocs, junior faculty,
women, and other under-represented groups.